FDSS Track 1: Expansion and Integration of Space Physics at the University of Delaware

This award supports the creation of a new tenure-track faculty position focused on space plasma physics and space weather. It offers students at the university exposure to research opportunities and new curricula in these areas of science. Space weather has numerous societal implications, including hazards to the satellites, power grid, radio communications, and navigation. This faculty position will be devoted to the education and training of future leaders in space weather related sciences.

The new faculty member will perform research to advance our understanding of space weather, plasma physics, using numerical simulations and analysis of ground-based and spacecraft data. The faculty member will teach space physics classes and participate in development of cross-disciplinary graduate courses. They will recruit students and offer science public outreach opportunities throughout the state.